Novel Hydrogel Based Three-Dimensional Bridges for Nerve Regeneration

9809581 Bellamkonda The goal of the proposed research is to design novel three dimensional substrate systems based on agarose to act as bridges for the regeneration of neural tissue. The approach is based on previous work by the investigator. The goals of the research are to better understand the process of neurite extension into the agarose gels, to investigate the behavior of neurites at interfaces of gels, to develop novel delivery systems designed to deliver effector molecules that would influence the maturation and proliferation of cells, and finally to evaluate the optimized agarose based three dimensional systems in a severed sciatic nerve gap model. ***